Acquisition of a Growth/Preparation Apparatus for Nanoscale and Materials Science at Tulane and Xavier Universities

With support from the Major Research Instrumentation (MRI) Program, Tulane University will acquire a growth/preparation apparatus for nanoscale and materials science. The new setup will combine a plasma source for non-invasive surface cleaning with thin film deposition equipment (physical vapor deposition, plasma-assisted vapor deposition, pulsed laser deposition) and basic in-situ characterization facilities (RHEED and XPS). The primary users will be researchers from Tulane University and Xavier University of Louisiana.

This apparatus will be used for the synthesis of a wide variety of magnetic catalytic, biocompatible, nanoscopic and structural materials, and will play a key role in integrating Tulane's and Xavier's materials synthesis and advanced surface characterization programs. It will also enhance instruction through research training of undergraduate, graduate, and post-graduate students; through implementation in several courses; and as a hands-on component in outreach programs.